CAREER: Parahydrogen-Induced Polarization (PHIP) of Nitrogen as a Path to Metabolic Sensing and Breakthroughs in Fundamental Science

This CAREER project pursues the development of new, cost-effective parahydrogen-induced hyperpolarization (PHIP) methods to significantly enhance the sensitivity of nuclear magnetic resonance (NMR) spectroscopy and magnetic resonance imaging (MRI) measurements. While conventional NMR and MRI are characteristically insensitive analytical techniques due to the inherently small polarization difference between nuclear spin states in an external magnetic field, by implementing PHIP methodology, the nuclear polarization is transferred from parahydrogen (a spin state of the hydrogen molecule) to a desired part of a tracer (molecule to be polarized) which dramatically enhances the NMR signals by tens of million-fold thereby enabling the tracing of previously undetectable molecules, e.g. metabolites and molecular probes at very low concentrations. This work will include the development of novel PHIP strategies for magnetic resonance experiments with both isotopes of nitrogen and will evaluate these hyperpolarization techniques as a new tool for hypoxia sensing, a medical condition of low oxygen commonly found in aggressive cancers. Educational and outreach activities integrated with this work will focus on the concept of leveraging the local education system to seamlessly transition students from local high schools to SDM through their community support network. Hands-on chemistry experiments, laboratory visits, and NMR workshops will provide local high school graduates with excellent college readiness, potentially increasing the rate of their degree completion and long-term success, strengthening the broader South Dakota community.

This research will advance parahydrogen-induced hyperpolarization (PHIP) of nitrogen nuclei through two interconnected research aims. Aim 1 will develop a novel hypoxia sensing model using 15N-enriched tirapazamine (TPZ) as a hyperpolarized magnetic resonance tracer. This, in turn, would pave the way for gaining new fundamental understanding of metabolic progression and treatment of cancer in the future with potential for profound impacts on advancing biotechnology. Signal Amplification by Reversible Exchange (SABRE) will be optimized to significantly increase the 15N polarization at 1.4T of this unprecedented isotopologue of TZP followed by in vitro enzymatic assays to detect chemical shift changes diagnostic of hypoxic reduction. To achieve this goal, isotopically enriched TPZ will be synthesized from relatively low-cost starting materials e.g. 15NH₄Cl and 15N-enriched NaNO3. Also, iridium catalyst removal will be investigated for preclinical translation. Aim 2 will establish 14N (99.6% natural abundance) as a new frontier for hyperpolarized sensing via two complementary approaches: (i) classical hydrogenative PHIP using deuterated quaternary ammonium salts and water-soluble rhodium catalysts to increase polarization levels tenfold and T₁ relaxation times beyond 10 seconds; and (ii) unprecedented SABRE-mediated 14N hyperpolarization using bifunctional tracers, with polarization transfer optimized via PH-INEPT and cross-polarization pulse sequences on a cryogen-free NMR spectrometer. Successful completion would pave the way to in vivo metabolic sensing of nitrogen-rich cancer biomarkers such as choline and phosphocholine.